U.S.-Mexico Collaborative Research: New Methodologies for Optimal and Non-Parametric Adaptive Control of Markov Processes

This U.S.-Mexico award will support Professor Sidney Yakowitz of the University of Arizona in a research collaboration with Professor Onesimo Hernandez Lerma of the Centro de Investigacion y de Estudios Avanzados del IPN (CINVESTAV) in Mexico City, Mexico. The purpose of the research is to develop and extend recent innovative analytical techniques in the field of optimal and adaptive control of controlled Markov processes. Of major interest is the development of non-parametric adaptive estimation and control methods, and the use of machine learning methods to deal with realistic situations when the model of the system is not completely known in advance. Controlled Markov processes are mathematical descriptions of the evolution and control of processes that involve sequential decision-making under uncertainty. Quality of information, inaccurate models, and computational implementation are important issues. The Mexican PI is widely acknowledged to be an authority on optimal and adaptive control of adaptive control of Markov processes, while the U.S. PI will bring to the collaboration, his expertise in statistical and probabilistic methods and the theory of machine learning. This wide range of complementary skills makes it likely that the work will yield advances in the design and analysis of new techniques in this field.